A Theoretical Investigation of Few-Body Systems

This research focuses on the calculation of three-body recombination processes in alkali atoms using a hyperspherical basis set expansion. The problem is of importance in understanding few body collision phenomena and in cold collisions of atoms in traps.